CRB: Molecular Genetics of Historical Tiger Beetle Populations for Conservation Biology

Historical information that dates back to a time before endangered populations were affected by human disturbance could be used to design specific conservation strategies. However direct observation of changes in the population structure are difficult because they necessitate long-term surveillance and sampling. The advent of the polymerase chain reaction (PCR) makes it possible to extract genetic information from museum specimens. Thus, the time range that is accessible for the study of genetic parameters in endangered species is substantially extended. The potential of this approach for its application in conservation genetics by addressing concrete management problems involving the endangered tiger beetle, Cicindela dorsalis will be examined. %%% The polymerase chain reaction (PCR) will be used to examine variation in mtDNA of specimens from museum collections. Changes in genetic structured over time will be assessed by comparing data from the historical specimens to an extensive data base on mtDNA variation in extant populations. Three main conservation questions will be addressed concerning (a) the choice of a source population for reintroduction into historical habitat, (b) the importance of the metapopulation for the management of the species, and (c) the loss of genetic variation after bottlenecks.